Travel Support for 2010 Association for Advancement of Artificial Intelligence (AAAI) Robotics Workshop and Exhibition

The project serves to support team travel to the 2010 AAAI Robotics Exhibition and Workshop. The exhibition and workshop overlaps with the 2010 AAAI Conference being held in Atlanta July 11-15, 2010. The Exhibition and Workshop revolves around the theme of manipulation and learning. Events include robot challenges, demonstrations and presentations. Funds will be used to support about 40 students and their advisors for team travel.